Funding for U.S. students to Attend the 2008 International Semantic Web Conference

Travel Support for Students from U.S. Universities to
Attend ISWC 2008

The ISWC 2008 Travel Fellowships provide funding for students at U.S.
Universities to attend the 2008 International Semantic Web Conference
(ISWC) which will be held October 26-30, 2008 in Karlsruhe, Germany. Our
goal is to encourage students who want to become part of the Semantic Web
research community, and we expect that participation in ISWC 2008 will be
a significant event in the graduate careers of the selected students.

The doctoral consortium, in particular, creates an opportunity for
doctoral students to test their research ideas, present their current
progress and future plans, and to receive constructive criticism and
insights related to their future work and career perspectives.

In selecting applications for travel support, preference is given to
students selected to participate in the doctoral consortium, followed by
students who are first author on a paper accepted at the conference,
followed by students who have other authorship on a conference or related
workshop paper.

Details, including application instructions, can be found at
http://ebiquity.umbc.edu/ISWC08Travel